From Blueschist to Granulite: Metamorphism in a Convergent Orogen, Seward Peninsula, Alaska

The PI proposes continued field work and petrological, geochemical and structural studies of both high P and high T components of the Seward Peninsula convergent orogen. Thermal relaxation in crust thickened by Jura-Cretaceous has caused uplift and exposure of a continuous sequence of blueschists to amphibolites and granulites. Detailed work is planned in the Kigluaik Mountains to investigate the geodynamic evolution of middle and lower crustal levels in this convergent margin. P-T- time paths will be established using thermobarometric and geochronology methods. The role of fluids will be investigated using phase equilibria, fluid inclusions, and stable isotopes. Simple thermal models will be constructed to explain metamorphism of thickened crust.